Block Travel Grant for U.S. Researchers to Attend the 11TH Power Systems Computation Conference to be held in Avignon, France

9316053 Girgis This proposal is for partial support for travel to the 11th Power System Computation Conference (PSCC). This year the conference will be held in Avignon, France, from August 30 to September 3. Since its inception in 1963, PSCC has evolved to become the leading international conference outside of the U.S. in the area of power systems applications, and attracts key people from around the world. This year the conference will offer two panel sessions on very timely topics as well as over 150 technical papers over a wide range of current interests. ***